NSF Astronomy and Astrophysics Postdoctoral Fellows Symposium; January 7-8, 2006; Washington, DC

NSF Astronomy and Astrophysics Postdoctoral Fellowship Symposium: Washington, DC (January 7-8, 2006)

ABSTRACT

AST 0549112 Jeffrey Kenney (PI), Joshua Faber (co-PI), Mary McSwain (co-PI)

Dr. Jeffrey Kenney (Yale University), along with co-PIs Joshua Faber (University of Illinois) and Mary McSwain (Yale University) are awarded funds to organize and conduct the fourth annual symposium of the NSF Astronomy and Astrophysics Postdoctoral Fellows (AAPFs). The symposium, to be held January 7-8, 2006 in Washington, DC, will bring together fellows, faculty mentors, prospective AAPF applicants, and interested members of the astronomical community. This will allow the fellows to present their research and educational activities, and better establish ways to enrich the fellowship experience itself. Additionally, fellows will obtain opportunities to establish interdisciplinary projects with colleagues during the symposium.

The integration of educational activities into the research efforts of the fellows provides for a broad impact of the fellowship program. Many fellows participate in K-12/public outreach activities, leading to enhancement of the public's interest in science. The symposium will allow the fellows to share their ideas and experiences, not only among themselves, but also with faculty mentors and with others in attendance.